Interactions of Toxic Trace Metals with Multi-Component Biofilms: A Mechanistic Approach

Interactions of Toxic Trace Metals With Multi-Component Biofilms: A Mechanistic Approach. This is a renewal award for support of research conducted under NSF Grant No. 86-17408 on the adsorption behavior of cadmium and lead in water solution to solid surfaces that had become coated with biofilms. Results led to development of a mechanistically-based, structured model that can be used to predict the behavior of these metals in an experimental system consisting of a single bacterial species, its extracellular polymer and a solid surface under conditions of constant pH and ionic strength. The objective of the renewal project is to extend this approach by introduction of ferric iron as a competing trace metal to provide a degree of complexity more analagous to conditions found in the natural environment where adsorption of metals to solid surfaces is of environmental significance. Results of this research are expected to develop knowledge of factors that influence the formation of biofilms on solid surfaces including fixed-film, biofilm reactors that are used for the treatment of wastewaters. Insights obtained during this project are expected to lead to improvements in the engineering design of fixed-film processes for wastewater treatment and may be applied to obtaining a better understanding than now exists of mechanisms for biofilm formation in sediments underlying natural surface waters and in subsurface formations that affect the movement of groundwater pollutants.